A Proposal for Management and Scientific Service Operation in Support of the US JGOFS Equatorial Pacific Process Study

This proposal seeks funding to provide the overall management for a US JGOFS Equatorial Pacific process study to be conducted during the fall of 1991 and spring of 1992. In addition, the proposal seeks funding to provide certain scientific services necessary for the completion of the project: ship use, hydrography, nutrient analysis, analysis of doppler current meter data, acquisition and archiving of satellite imagery, site mapping and sediment coring. These services do not stand alone as scientific proposals and research, but are necessary to investigators who have submitted scientific proposals and have been identified as critical to the success of the overall experiment by the US JGOFS Steering Committee. The US JGOFS Rational and Plan for Equatorial Pacific Process Studies, which accompanies this proposal provides the overall scientific rationale and justification for an equatorial Pacific process study; it also describes the conceptual plan and experimental strategy that has been endorsed by the US JGOFS Steering Committee and the scientists who want to take part in the study.